Functional Morphology of the Terminal Nerve -LHRH System

The terminal nerve is a cranial nerve found in all classes of vertebrates. Peripherally, this nerve connects to the nasal epithelium. There is very little hard evidence which tells us the function of the terminal nerve. However, this nerve has been previously implicated in sensory and motor functions and just recently it has been implicated in the control of certain reproductive processes. One hypothesis is that the chemosensory component of this nerve detects sexual pheromones and facilitates reproductive behavior by releasing LHRH into brain areas controlling sexual activity, reproductive reflexes and gonadotropin secretion. Dr. Leo Demski has been studying the terminal nerve and will continue his work by taking advantage of unique features of the system in stingrays, its separation from the olfactory tract and its large ganglion which has characteristics suggesting neurosecretion directly into cerebral vessels. Sophisticated neuroanatomical and developmental techniques will be employed to define the precise functions of the terminal nerve.